WORKSHOP: Theory and Practice of Language Implementation

This grant supports participant costs for students to attend a Summer School on Theory and Practice of Language Implementation during the summer of 2009. The workshop affords students an opportunity to study leading edge topics with first-rate faculty, and the summer school provides a setting for building a community that will become the next generation of computer science researchers.

Sol J. Greenspan, Ph.D.
CISE/CCF